The Thirteenth International Colloquium on Dynamics of Explosions and Reactive Systems: Publication of Proceedings

The purpose of this grant is to partially support the publication of the proceedings of the 13th International Colloquium on Dynamics of Explosions and Reactive Systems, to be held July, 1991, in Nagoya, Japan. The colloquium deals with the interrelationship between rate processes of energy deposition in compressible media and their flow field, and with the nonsteady coupling between the flow system and the exothermic reactions in the course of combustion. Papers will be focused on nonideal detonation phenomena, dust explosions, physical vapor explosions, explosion safety, ignition dynamics, chemical and dynamical flame effects, reactive compressible shear layers and heterogeneous combustion. The Colloquium meets biannually and is an international forum of detonation and fluid dynamics. The publication of the Proceedings, in English, makes a valuable contribution to the world literature in these important technological areas.